Planning A Computer-Mediated, Distance-Education Project To Improve Elementary Teachers' Competence To Teach Ecosystem Management In Environmentally Stressed Rural Areas

This planning grant provides the time and resources necessary for the staff of Eastern Oregon State College to research and develop a full grant. The full proposal will deliver content and dissemination technology in ecology education to elementary school teachers. The topic is central to the economy of the region and the technology necessary to deliver the project is already in place. The planning process is carried out in collaboration with the Oregon State University Agricultural Program, the Blue Mountain Natural Resources Institute, the Oregon Department of Education, and the ED-NET. The planning process includes an assessment of the needs, an inventory of current conditions, an examination of the necessary technologies, and a plan for dissemination. Through a mini-conference and periodic meetings, the full proposal will take shape. The cost sharing for the planning grant is estimated at 44%